Some Questions in Nonlinear Differential Equations

DMS-9732529
PI: Rabinowitz

We plan to study some problems in (a) dynamical systems,(b) geometry,and
(c) partial differential equations.For (a),building on some recent
research,we are using variational methods to construct a variety of
homoclinic and heteroclinic orbits for Hamiltonian systems on the
2-torus and also on the n-torus when an additional symmetry is present.
Some analogous questions are being pursued for (b) when minimal geodesics
heteroclinic to a pair of periodic geodesics on the n-torus are being
sought.Another problem of interest for (a) is the existence of homoclinic
solutions for Hamiltonian systems which possess singular potentials,
especially when the dimension of the configuration space is greater
than two.Lastly for (c),there has been some recent progress by Craig
and Wayne and by Bourgain on the existence of small amplitude periodic
solutions for nonlinear wave equations.We are interested in whether
variational tools can be employed to obtain large amplitude solutions
in such settings.

Dynamical systems and partial differential equations are used to model
continuous phenonena arising in science,engineering,economics and many
other fields.Of considerable interest are solutions of such equations that
exist for all values of the time variable.Aside from equilibria,i.e. time
independent solutions,the simplest solutions of this type are periodic
ones.Periodic solutions return to their original state after one time
period.The next simplest class of global in time solutions are so-called
heteroclinic solutions which in the simplest cases will approach a pair of
different equilibria or time periodic solutions as time goes forward or
backward to infinity.(When the limit states are the same,the solutions are
called homoclinics).Our research involves developing methods to find
heteroclinic and homoclinic solutions for dynamical systems and finding
periodic solutions for some special classes of partial differential
equations.